REU Site -- Research Experiences for Undergraduates in Chemical Engineering Using the Colorado Bioprocessing Center

This award provides continued funding to Colorado State University (CSU) for the support of a 3-year REU Site entitled, "Research Experiences for Undergraduates in Chemical Engineering Using the Colorado Bioprocessing," under the direction of Dr. Vincent G. Murphy. This 10-week summer program will provide an opportunity for 8 undergraduate students from other institutions to participate in a variety of bioprocessing research opportunities at both the undergraduate and graduate levels in preparation for a career in bioprocessing research and development. The students will work on individual research projects in the Colorado Bioprocessing Center (CBC) with the guidance and support of a faculty advisor and CBC staff. In addition the students will participate in weekly colloquia and a concluding symposium where they will share their research experiences with fellow participants.